Student Travel for Programming Languages Mentoring Workshop at International Conference on Functional Programming 2018 (PLMW@ICFP)

A Programming Languages Mentoring Workshop (PLMW) is being organized as part of the 23rd ACM International Conference on Functional Programming (ICFP) 2018, the premier conference on the design, implementations, principles, and uses of functional programming. The conference will be held in St. Louis, Missouri. This award specifically supports students from underrepresented groups and gives priority to US citizens and permanent residents to attend the mentoring workshop in addition to the ICFP conference. The impact of the award relates to broadening participation in computing, providing opportunities for students to receive mentoring from leading researchers, and building the next generation of researchers and knowledgeable practitioners in programming languages and related topics.